United States and Israel Dual Site Conference: A Curriculum Design Project

9453050 Bybee The Ministry of Education in Israel and the National Science Foundation are supporting a two-part conference of one week each in each country. Five Isreali and five U. S. science educators exchange information on the process of science reform in the two countries and the role of technology education in the school science programs. The project is to initiate a long term working arrangement to share ideas and resources and development of curricula for science and technology education. The conference would include visits to schools, universities and other institutions involved in educational reform. ***